Modeling and mitigation of acoustic noise in switched reluctance motor drives using mechanical impulse response

Electric motors consume nearly fifty percent of the electricity that is generated worldwide. Integration of adjustable speed motor drives plays a pivotal role in increasing efficiency, reliability and performance in these energy converters and is considered a necessary step in the future energy systems across the globe. Electrified transportation, home appliances and industrial drives are among the primary candidates for this transformation. Switched reluctance motor (SRM) drives can provide a low cost, robust and fault tolerant solution for these applications. However, high levels of acoustic noise and vibration in this family of drives has limited their use in many applications. This project addresses this shortcoming by introducing a new computational tool that will allow for optimal tuning of the design and control to minimize this undesirable feature of SRM drives. It is hoped that effective use of the proposed method will open new horizons for integration of this technology in various sectors of the industry, thereby providing a low cost and highly efficient alternative for use in affordable and energy saving products.

The proposed method is based on the use of the electromechanical impulse response for machine modeling and analysis. This innovative tool provides an experimentally measurable link between the terminals of the power electronic converter and acceleration of the stator frame. This, in turn, will allow for online tuning of the vibration and acoustic noise that is generated by virtue of the radial and tangential vibrations in the stator frame of SRM drives. Furthermore, the proposed method substantially reduces the computational efforts in optimal design of the electromechanical features of SRM drives. In addition, cross coupling between the rotor and stator and nonlinear dynamics of the SRM drive will be taken into account in the work. Furthermore, the impact of wide-bandgap devices on structural response of SRM drives will be investigated. The proposed method will be investigated through detailed multi-physics finite element analysis and experiments. Successful completion of this project will (a) create new opportunities in applying the proposed method to other electric motors, inductors, transformers and generators; (b) educate a new generation of motor experts with insightful understanding of electromechanical energy conversion, vibration and power electronics; and (c) provide a better understanding of magneto-structural phenomena in electric machines and adjustable speed drives.